EPSCoR Human Resource Development Supplement

Title: Maine EPSCoR Program: Phase II Abstract Narrative: This Maine EPSCoR two-year continuation award is to bring the State of Maine up to active status with the thirteen current EPSCoR States so that all seventeen States will compete on an equal basis for Advanced Development Grants in 1991-92. The Maine proposal embraces two research components: 1) Global Climate Change: Maine EPSCoR Marine Science Component, and 2) Abrupt Global Climate Changes and Their Consequences to Maine. The total award is for $1,200,000 and presents a non-federal "match" of $4,205,000. The proposal was merit reviewed; site visited and recommended for funding subject to some modifications which were incorporated in the award submission. The proposal is recommended for funding.